The National Summit on Mathematics Assessment

This proposal requests financial support to conduct research related to the literature on alternative practices in assessing student performance in mathematics at the pre college level. This research is in preparation for the MSED national summit on assessment which, itself, will raise further research issues.